Laboratory Study of Atomic and Molecular Collisions of Aeronomic Importance

9300707 Smith The present research program is for providing laboratory data for atomic and molecular collision processes that occur in the earth's upper atmopshere. Even though collisions have been studied for decades, many of those needed for atmospheric modeling have not been investigated. In those instances where laboratory studies have been performed, the data taken have often been those of most interest to the atomic and molecular physicist, rather than those of greatest use to the atmospheric modeler. In particular there is a need for accurate total cross section data for atmospheric species in the collision energy range relevant to the atmosphere. These data are required for modeling the atmosphere's response to precipitation of energetic particles in the auroral zones and for understanding the behavior of the upper ionosphere. This program directly addresses this need. Specifically, the researchers propose to continue experiments on electron impact ionization of molecules and collisions of keV-energy O,O+,H,H+,He and He+ with atomic oxygen and atomic hydrogen. ***